Tropical Glaciers and Climate

This project is concerned with the response of topical glaciers to climatic forcing and comprises evaluation of satellite data, analysis of glaciological mappings and measurement, modelling and prediction. It is focused on a few regional targets in accordance with suitable information. A "topical satellite glaciology" may become a reality thanks to the fine spatial resolution of SPOT. Mount Kenya is an obvious early target of opportunity because here a calibration is possible with our 1:5,000 map of the ice status in September 1987. For Kilimanjaro satellite sensing shall be used to assess cryosphere changes since the early 1970's. The forcing of the observed ice recession by direct solar radiation and greenhouse effects is to be studied for these two glaciated mountains in East Africa, where the changing ice extent can be documented for various epochs over the past century and where the topography is well resolved by maps at appropriate scales. Modelling of a causality chain involving the ice dynamics is intended for the only two tropical glaciers with a suitable documentation of field observations. For the Lewis Glacier on Mount Kenya, field observations shall be evaluated to verify modelling-based predictions and to ascertain effects of climatic change. For the Yanamarey Glacier in Peru's Cordillera Blanca, field observations and modelling are to be combined to predict future developments, as well as to reconstruct the past net balance conditions and the climatic forcing responsible for the ice retreat over the past century. In conjunction with similar earlier studies for New Guinea and East Africa, this would indicate the diversity in the beginning of the ice recession across the global tropics.